Sampling and inversion methods for quantifying effect of incomplete subsurface characterization on uncertainty associated with recovery of contamination history.

0607002
Michalak
This project will employ inverse modeling to trace contaminants in groundwater to the source of the contamination. Three methods will be developed to incorporate uncertainties in transport parameters into the modeling: Monte Carlo simulation, small perturbation approximation, and co-kriging. Results of these three methods will be tested with field data and hypothetical applications at Dover Air Force Base, Delaware, and Gloucester Landfill, Canada. The results of this research also will be used to develop guidelines to determine the extent to which the history of contamination can be quantified given uncertainties associated with transport parameters. Development of capabilities to trace contaminants to their source will contribute to the identification of responsible parties and could lead to improved practices that correct such problems.